Organization and Function of the Extra-Bulbar Olfactory Pathway

Evolutionary changes in the nervous system offer a tremendous
opportunity to understand the relationship between the nervous system and
behavior. When new brain structures are created, what does this do to an
organism's behavior? How do these new structures interact with other
portions of the nervous system? We are using
the vertebrate olfactory system (the system responsible for the sense of
smell) as a model for examining evolutionary changes in the nervous system.
To this end, we are exploring the organization of the olfactory system in
a variety of vertebrate animals.
Recently, scientists have learned that receptor cells in the nose
of some fishes and amphibians are connected to the a region in the base of
the forebrain, instead of to the olfactory bulbs, as is usual for these
cells. The structure of this newly-discovered subsystem, the "extra-bulbar
pathway," is poorly understood, and its function has not been investigated.
In the proposed experiments, the location of the receptor cells of the
extra-bulbar pathway within the nose will be examined in adult axolotls
(Ambystoma mexicanum), a salamander species that lives in water throughout
its life. Single-cell electrophysiological recording methods will be used
to study the odorant response properties of the receptor cells of the
extra-bulbar pathway in axolotls. These experiments will allow us to
examine the function of the extra-bulbar pathway, and
to test an interesting hypothesis that suggests that the extra-bulbar
pathway functions in detection of pheromones. Pheromones are chemicals
produced by animals that carry information to other members of the same
species to tell them about the producer's sex or reproductive status.
These experiments will provide the first clear description of the
organization and function of the extra-bulbar pathway. This research has
important implications for our understanding of the ways in which odorant
information is converted into electrical signals in olfactory receptor
cells, as well as the way odorant information is processed in the olfactory
bulbs, potentially shedding light on the neural mechanisms underlying odor
perception.